(Micro) Computer Based Physics Laboratory

The Computer Based Physics Laboratory project will result in a model laboratory program for general physics courses, in which students, Apple IIe micro-computers, interfaced measurement modules, and specially developed software will interact to achieve a unique and improved laboratory experience. A series of 30 laboratory software packages, stored on magnetic disk, will assist and direct student procedures, monitor and verify student measurements, aid in analysis, and help eliminate certain traditional laboratory difficulties. Apple IIe computers, printers and measurement modules will also perform as powerful data acquisition and analysis devices. The project will implement a substantially improved curriculum and a model laboratory program, and will have replication value since the software disk series will be available to other institutions.